SGER: Development of Technology for Fabrication of Net Shape Ceramics and Ceramic Composites Using Rapid Prototyping and Manufacturing Methods

The project will investigate the possibility of identifying or formulating a ceramic sol-gel system which will gel when irradiated by laser radiation. The aim is to test the feasibility of developing a system that can employ a modification of conventional stereo lithography equipment to produce rapid prototypes of ceramic materials utilizing the sol-gel process. Existing techniques for the rapid prototyping of ceramics, such as Selective Laser Sintering and Three-Dimensional Printing yield porous and low strength ceramic bodies, whereas the sol-gel process has the potential to produce ceramic bodies with good strength. The prototyping and testing process represents a major cost of developing applications for ceramic components. If high strength ceramic components can be rapidly produced and tested using the researched technique, the utilization of ceramics in industrial components may be greatly facilitated.